Presidential Young Investigator Award

This award will be used to expand the Principal Investigator's (PI) current research program in cell-surface interactions into areas of application in tissue engineering. The interaction of cells and tissues with polymeric material surfaces will be investigated at the molecular and cellular level, addressing both biomedical and biotechnological applications. The PI plans to determine material surface properties and surface-protein-cell interactions that lead to the desired protein, cell and tissue behavior.